Moisture Sensing System

This Small Business Technology Transfer (STTR) Phase I research project will develop a parts-per-billion (ppb) moisture concentration sensing instrument based on a ring down cavity (RDC) spectroscopy technique. Commercial application includes characterizing the purity of a variety of gases used in the manufacture of semiconductors.